Cultivating Exemplary STEM Teachers for High-Need Rural School Districts

This Noyce Track 1 project at the University of St. Mary (USM) aims to address the shortage of qualified STEM teachers in rural, high-need school districts by offering scholarships to STEM majors pursuing secondary teaching licensure in mathematics, chemistry, or biology. Recipients will gain extensive clinical experience in high-need schools and commit to teaching in such districts for at least four years after graduation. The program features a comprehensive preparation model: early and sustained clinical experiences, individualized and cohort mentoring, academic support, and structured induction for new teachers. These supports are designed to improve teacher effectiveness, retention, and increase the number of well-prepared STEM educators in rural schools. The project will also contribute to research on effective strategies for preparing and supporting STEM teachers in rural settings, addressing workforce shortages in Kansas, Missouri, and nationwide.

Throughout the project, USM will partner with local two-year colleges and school districts in Leavenworth, Lansing, and Tonganoxie. The goals are to recruit, retain, and graduate eighteen STEM teacher candidates, expand clinical preparation through district partnerships, and increase graduate retention in high-need schools. The model includes faculty, classroom teacher, and district mentoring, plus over 130 hours of supervised field experience to build instructional skills and professional confidence. A mixed-methods evaluation will assess the program’s impact, with findings disseminated through various channels. Supported by the Robert Noyce Teacher Scholarship Program, this Track 1 project aligns with NSF’s mission to strengthen STEM teacher preparation and retention in high-need districts